Guyed Ocean Towers Under Seismic and Other Stochastic Loads

An exploratory study is conducted to develop an analytical model for the nonlinear guy cables which anchor the bottom of an ocean tower to maintain its lateral stability. Each guy line consists of a lead line, a trailing line, and a clump weight to limit the tension in the cable. For normal sea condition a relatively stiff system is required. However, in survival sea states it is desired to allow the system to become more compliant. This is achieved by making the clump weight leave the resting position on the sea floor, thus making the system more flexible and decreasing the dynamic amplificaton factor. The effort will be focused on the development of a stochastic linearization technique in the frquency domain for a systems involving coupled nonlinearities in stiffness and damping, and on the development of a more accurate and efficient model of slack guylines to simulate the dynamic contact of the guyline and clump weight with the ocean bottom.